Acquisition of an Inductively Coupled Plasma-Mass Spectrometer for the College of Natural Sciences and Mathematics, California State University, Long Beach

9977564
Mason
This Major Research Instrumentation award to California State University at Long Beach provides an inductively coupled plasma-mass spectrometer for a highly multi- and inter-disciplinary set of earth, ocean and environmental sciences research as well as biological, chemical and archeological study. It will be used for a wide variety of research projects by investigators from several CSULB departments and other CSU campuses, and it will be integrated into undergraduate education and training . The project is supported by the Division of Ocean Sciences at NSF. California State University will provide cost-share support for more than 40% of total project costs.
***